Representations of affine Kac-Moody algebras and representations of Groups over a 2-dimensional local field

Let G be a complex semi-simple group, and let g be its Lie algebra.
Our main object of study is the Kac-Moody extension g' of the loop
algebra g((t)); more specifically, the category of representations of
g' at the critical level, denoted g'_(crit)-mod. Our goal is to develop a
localization theory for this category, i.e., to relate it to other categories
that are constructed locally out of spaces, endowed with an action
of the loop group G((t)), such as the affine Grassmannian. Ultimately,
we believe that the structure of g'_(crit)-mod is governed by a pattern
of local Langlands correspondence, i.e., its extrinsic structure can be
described solely in terms of the space of local systems on the formal
punctured disc with respect to the Langlands dual group.
The second (and, so far, unrelated) part of the project is the development
of representation theory for groups associated to G and 2-dimensional local
fields.

The object of study of the current project is representation theory.
Starting from the 1930's it was realized that there is fairly small list
of types of possible fundamental symmetries that occur in Nature.
These types are called "root data", and the corresponding concrete
mathematical objects are called semi-simple groups. In order to have
a representation theory one has to pick one of those semi-simple
groups and couple it with a data of algebraic or analytic nature, such
as what is known in mathematics as a "field" or "ring", e.g., real or
complex numbers. Having a representation theory, the objects that
one deals with look fairly complicated, and most of the questions that
one can ask are not amenable to complete answers. However, we
hope to find a point of view on representations, which, on the one
hand, would answer some deep questions about their structure, and,
on the other hand, will ultimately reduce to questions about the
initial data, i.e., the root system.